SBIR Phase I: In Situ Stand-alone Monitor for Rapid Toxicity Detection

This SBIR Phase I project will focus on the creation of a usable optical sensor for toxicity detection in waste water.

The broader/commercial impact of the project will be to transform the wastewater industry through increased automation and accuracy.